MGR Honorable Mention: Sandra Pena

This special award will give Ph.D. student Sandra Pena additional flexibility in pursuing her graduate studies and research initiation in cellular neuroscience. This award will strengthen minority participation in research in this area.